Particle Tracking in High Reynolds Number Turbulent Flows

9722128 Bodenschatz In order to measure important parameters of fully developed turbulent flow, a novel particle tracking system will be developed and used. This system is based on the technology developed for the analysis of high energy particle collision data. This research will contribute significantly to our understanding of turbulence, and will provide data for comparison with theoretical predictions. This grant is supported jointly be the Division of Physics, the Division of Materials Research, and the Office of Multidisciplinary Activities (OMA) of the Mathematical and Physical Sciences Directorate (MPS). ***